New, GK-12 Brooklyn College -- CITY AS LAB

PROPOSAL #: 0638718
PRINCIPAL INVESTIGATOR: Wayne Powell
INSTITUTION: CUNY Brooklyn College
TITLE: Brooklyn College GK-12 City As Lab (BC-CAL)

The Brooklyn College GK-12 CITY AS LAB (BC-CAL) project aims to achieve four essential goals: 1) better equip graduate students for successful careers as scientists (academic, governmental, business); 2) improve the ability of urban high school teachers associated with the "Small School" movement to teach science in an authentic and community-based fashion; 3) enhance learning of science for students in grades 9-12; and 4) create an enduring, cooperative network of educational partners that includes Brooklyn College, thematic Brooklyn-based high schools, NYC DOE, and informal science partners of Brooklyn. The intellectual merit of this project focuses on answering the questions "How can GIS software be employed to best address the needs of teachers and students in secondary school STEM education? How can community partners best use their resources to aid science-themed small schools in meeting national, state and local science standards?" Broader impacts include but are not limited to expansion of graduate fellows' skills, improvement of research skills of K-12 teachers, and improvement of 9-12 STEM education.